1997 International Conference on Solid-State Sensors and Actuators to be held in Chicago on June 16-19, 1997

9713494 Wise Funds are provided to underwrite the cost of graduate student participation in the International Conference on Solid-State Sensors and Actuators to be held in Chicago in June, 1997. This conference is the world's leading forum for reporting new advances in integrated sensors, MEMS and Microsystems, and is held in the U.S. only once in every six years. ***